Laboratory Equipment for Introductory Physics and Astronomy

The Physics Department at Indiana University at South Bend will improve its laboratory program and provide its students hands-on experience with laboratory equipment which is so much a part of a scientist's life. In order to offer a more effective and up-to-date program, the Department will purchase equipment in three specific areas: 1) Computerization of the introductory physics laboratories; 2) Utilization of telescopes and accessories in astronomy courses; and 3) Creation of a modest intermediate-level (mostly modern) physics laboratory. The equipment will provide both physics majors and non-majors worthwhile laboratory experiences and help develop the excitement needed for learning and self-discovery beyond the classroom.